Baculovirus Genome Replication

Baculoviruses, insect viruses, are the focus of intense interest because of their remarkable ability to hyperexpress and process foreign eukaryotic genes and their potential use as insecticides. Despite this widespread interest, the mechanism by which baculoviruses replicate is unknown. This proposal is based upon recent work in our laboratory which identified and characterized the origins of replication from two baculoviruses genomes, the first time such sequences have been identified. The long term goal of this project is to use plasmids containing replication origin sequences to develop a detailed understanding of the mechanism by which DNA is replicated in baculoviruses. This includes the characterization of the structure of the origins of DNA replication, the identification of genes necessary to the process, and elucidating the function of those genes. Since the transcription of the late genes is dependent upon DNA replication, the results of this work should also make it possible to elucidate the processes involved in late transcription. %%% Information derived from this project will not only enhance our understanding of a basic biological mechanism but will also be of practical use, in that it will facilitate the design of recombinant baculovirus for use as expression vectors and as insecticides.